Postdoctoral Fellowship: AAPF: The explosive origins of heavy elements: systematic searches for r-process sites with WINTER

Danielle Frostig is awarded an NSF Astronomy and Astrophysics Fellowship to carry out a program of research and education at the Harvard-Smithsonian Center for Astrophysics. Frostig will conduct a series of near-infrared surveys to study a suite of potential origin sites of heavy elements formed in r-process synthesis, including neutron star mergers, gamma-ray burst afterglows, and exotic supernovae. For the education component of this project, Frostig will run a telescope design and build course at a local high school maker space and develop accompanying online curriculum to teach students hands-on skills in STEM.

This project employs a new robotic infrared survey telescope developed in part by Frostig as part of her PhD thesis. Using near-infrared time-domain surveys of the Milky Way and nearby galaxies, Frostig will study intrinsically reddened transients and variables to shed light on dusty environments and sites of r-process elemental synthesis. This project will help prepare for and complement the upcoming time-domain surveys from the Vera C. Rubin Observatory and Nancy Grace Roman Space Telescope by building up a long baseline catalog of near-infrared transients and variables and providing some overlapping coverage. Frostig will also work on designing future near-infrared instrumentation for follow-up spectroscopic characterization of sources. This project advances the goals of the NSF Windows on the Universe Big Idea. This research award is partially funded by a generous gift from Charles Simonyi to the NSF Astronomy division. The project includes significant contributions to Vera C. Rubin Observatory’s Legacy Survey of Space and Time.